Conference: The 2026 International Symposium on Quantum Fluids and Solids (QFS2026)

NON-TECHNICAL SUMMARY:
The 2026 International Symposium on Quantum Fluids and Solids (QFS2026) will be held August 2-8, 2026, at the University of Notre Dame. The Quantum Fluids and Solids (QFS) conference series was established in 1975 and has been a flagship conference in condensed matter physics. This year’s program will extend from traditional quantum matters (such as superconductors that can flow electrons with zero dissipation) to modern materials (such as graphene with exotic electronic properties in two dimensions) and to emerging quantum information science (such as quantum computing that can solve certain problems impossible for classical computing). This support will partially cover the organizing expenses, reduce registration fees, and encourage participation for all students. QFS2026 is expected to welcome 200 attendees from around the United States and the world, including many leading experts in the field. This gathering will be a great opportunity to share scientific breakthroughs, foster collaborations, inspire creative ideas, and cultivate the next generation. The quantum information science aspects of this conference are particularly aligned with the US national interest.

TECHNICAL SUMMARY:
The 2026 International Symposium on Quantum Fluids and Solids (QFS2026) will be held August 2-8, 2026, at the University of Notre Dame. Established in 1975, Quantum Fluids and Solids (QFS) has been a flagship conference on macroscopic quantum phenomena in low-temperature quantum matter. This year’s program will extend from traditional areas, such as superfluidity, superconductivity, and Bose-Einstein condensation, to modern topics, including quantum spin liquids, topological / flat-band superconductors, 2D electron fluids & solids, as well as emerging fields like QFS-based quantum computing, networking, and sensing. This support will partially cover the organizing expenses and thereby reduce registration fees and encourage participation for all students. QFS2026 is expected to welcome 200 attendees from around the United States and the world, including many leading experts in the field. This gathering will be a great opportunity to share scientific breakthroughs, foster collaborations, inspire creative ideas, and cultivate the next generation.